Multi-Course Instrumentation Laboratory

A multi-course instrumentation laboratory has been established in the Chemistry Department at Morehouse College. This laboratory includes equipment for the instrumental part of a traditional undergraduate chemistry laboratory together with a laser laboratory and a computer laboratory. Courses have been modified to include the use of computer- interfaced spectroscopic equipment with appropriate software for data analysis, laser-based experiments, and computer-based instruction devoted to solving chemical problems with the type of software found in modern academic and industrial settings. Majors in chemistry, biology, and physics, and students pursuing careers in the health and engineering professions are impacted by the activities of this facility. Since Morehouse is the only one of four colleges in the Atlanta University Center Consortium which offers all of the upper division courses required of chemistry and pre-engineering majors, these activities represent a unifying effort embracing students at four undergraduate institutions.